Preconditioning Techniques for Linear Systems of Equations

NSF Proposal Number: 0431068

Title: Preconditioning techniques for linear systems of equations

PI: Vivek Sarin, Dept. of Computer Science, Texas A&M University

Abstract:

The solution of linear systems of equations is a fundamental problem that
must be tackled in various areas of science and engineering. Iterative
methods are used to solve large sparse systems from partial differential
equations as well as large dense systems from integral equations.
Preconditioning techniques are necessary to accelerate the rate of
convergence of these solvers. An ideal preconditioner should be robust,
effective, parallelizable, and inexpensive to compute and apply to the
linear system. When solving dense systems, the unavailability of the
coefficient matrix often limits the choice of preconditioners. The goal of
the project is to develop novel preconditioning techniques for sparse and
dense linear systems. These techniques will use a sequence of linear
transformations to obtain a preconditioned system from the original one.
Techniques will be developed to analyze the preconditioned system, and
schemes will be developed to improve the effectiveness of the
preconditioner. The resulting preconditioners will be robust, effective,
and inexpensive. These preconditioning techniques will be implemented,
analyzed, and tested on a variety of problems. These efforts will be
integrated with interdisciplinary collaborative research activities to
ensure a greater impact on application areas.